The Chicago Math Scholars Program

The goal of this program is to increase the number of economically disadvantaged
students entering the technological workforce through the achievement of two specific
objectives:
1) increase the number of economically disadvantaged students graduating with
mathematics degrees from Northeastern Illinois University (NEIU) and
2) increase the number of Northeastern Illinois University mathematics graduates
going on to Ph.D. programs in mathematics.

These objectives will be accomplished by creating a program at NEIU that
supports, motivates and monitors student progress through their undergraduate or masters
degree and by providing a bridge program to the doctoral degree in mathematics at the
University of Illinois at Chicago.

Twelve students, ten undergraduate and two graduate students, have been selected as
Chicago Math Scholars. Undergraduate scholars were recruited from undergraduate
mathematics majors, from promising incoming high school students and from targeted
community college transfer students. Scholars had GPA of 3.0 and were
economically disadvantaged as determined by their eligibility for Pell grant awards.
Graduate Chicago Math Scholars were selected from among those students admitted to
the masters degree programs in mathematics at NEIU. Students were economically
disadvantaged by virtue of their eligibility for Graduate Assistance in Areas of National
Need (GANN) and express an interest in pursuing a Ph.D. degree in mathematics.
Key strategies for achieving the program objectives include: the provision of
tuition waivers and monetary stipends; mentoring of students by both undergraduate and
graduate faculty; academic and personal support; career guidance and enrichment;
technology training; professional development through activities such as membership in
professional associations and conference attendance; job placement assistance;
interaction with Ph.D. program faculty and students; GRE preparation courses; graduate
seminars and orientation programs; and research participation.

Northeastern Illinois University is an urban, comprehensive university, serving
the northwest side of metropolitan Chicago. Seventy nine percent of its enrollment is
comprised of first generation college students. Sixty four percent are female, 75.6%
work full or part-time, and 60% receive some form of financial aid. NEIU is the only
four year, federally designated, Hispanic Serving Institution (HSI) in the Midwest. By
virtue of its demographics, the students most likely to benefit from this program are
under-represented minorities.
The National Science Foundation's report "Science and Engineering Indicators
2000l" notes that only 2.2% of all graduate students in mathematics and computer science
are Hispanic. In 1997, only 34 Ph.D. degrees were awarded to Hispanics in math or
computer science. By facilitating student retention, graduation and transfer to Ph.D.
programs in mathematics, this program has the potential to significantly impact the
number of under-represented minorities attaining advanced degrees in mathematics and
who are prepared to enter the U. S. technological workforce at the highest levels.